Center for Innovative Mining Systems (Planning Grant)

Funds are provided for the establishment of the Center for Innovative Mining Systems. This center is to have sufficient credibility and broadly based industry support to sustain a productive research program even through the highly variable economic cycles inherent in the mining industry. With an international character of its own, the Center may also serve as a means of evaluating industry/university centers having international funding and orientation. The Center would be particularly valuable in defining those emerging opportunities which are evident only to an open and innovative consideration of the entire mining system.